Formal Power Series and Algebraic Combinatorics: An International Combinatorics Conference

The investigator together with Arizona State University is hosting the
Thirteenth International conference titled Formal Power Series and
Algebraic Combinatorics (FPSAC'01). This continuing series of
conferences bring together researchers from various areas of
combinatorics and theoretical computer science and links them with
leading scientists from allied disciplines in pure mathematics, applied
mathematics and physics. The focus of the 2001 conference is on
algebraic and enumerative combinatorics, again with emphasis on
interdisciplinary links to allied fields.

Topics include: formal power series and enumeration (e.g., enumerative
problems in physics), algebra and enumeration (e.g., combinatorial
methods in representation theory, association schemes), topological and
geometric combinatorics (e.g., arrangements of hyperplanes, Helly and
Tverberg type theorems, oriented matroids), probabilistic methods (e.g.,
extensions and refinements of Rodl method, randomized algorithms), poset
and graph theory (e.g., correlation and sorting, combinatorial approaches
to the algebraic aspects of correlation), extremal combinatorics (e.g.,
algebraic methods used to determine structural properties of extremal
objects).